Educational Innovation: A Software/Hardware Integrated Approach for Real-Time Information Processing and Computer Design

This CISE Educational Innovation award provides support to develop, test and disseminate innovations in the computer engineering undergraduate curriculum at this institution to emphasize real-time information processing systems to introduce undergraduate students to the areas of signal processing, image processing, cognition, human-computer interaction, and computer technology, in preparation for transition to graduate study or to industry. This laboratory builds on the existing and developing laboratories in Interactive Design and in Microcomputers. The institution has a strong record of involvement with underrepresented groups and that will continue in this project. Further, the project is planned such that key components will be able to be replicated at other institutions at reasonable cost.